Theoretical Studies of Hadronic Reactions

The general area of this research is on quark models and hadronic and nuclear dynamics. The specific topics for investigation are (1) proton-antiproton annihilation into two- meson channels, (2) the low energy theorem and its apparent break down in the photoproduction of neutral pions, (3) flavor symmetry properties of hadrons probed by external currents, (4) chiral symmetry in nuclei, and (5) astrophysical applications of neutrino-nucleus reactions.